Student Travel Support for the 2012 International Symposium on Code Generation and Optimization (CGO 2012)

The grant will support student travel to the International Symposium
on Code Generation and Optimization (CGO 2012). CGO is a top
conference in the area of advanced compilation techniques, such as
feedback-directed optimizations and attuning. Supporting student
travel to attend professional conferences and workshops is a very
important mission of the NSF. Broader impacts include building the
next generation of researchers in this research area.